Development of Software for Simulation for Quantum Systems

Instructional simulation software for undergraduate quantum or modern physics will be developed. It will introduce the time-dependent Schrodinger equation in a simple discrete form to do many intuition-building real-time simulations. The software will allow students to see directly that the Schrodinger equation governs real-world phenomena such as resonant absorption of electromagnetic waves. This intuitive background will make it much easier for a student to understand the formal theory of the Schrodinger equation as a partial differential equation. The software will be a general-purpose one- and two-dimensional time-dependent Schrodinger solver, based on a new fast and accurate algorithm. This software will be of immediate use in upper-level physics courses.